Exercise Body Temperature and Sleep in Rats

Body temperature rises as a result of exercise in a running wheel during the active period of the daily cycle in female rats. During their inactive period, in which they do not exercise, body temperature is elevated above what it would have been if they had no previous exercise bout. Dr. Satinoff will study the parameters of this phenomenon of post-exercise elevated body temperature. Experiments will be aimed at determiming : 1. whether males display this phenomenon as well as females, 2. what duration of exercise is critical and 3. what temporal characteristcs of the exercise are important. This research will contribute to knowledge about how exercise affects body temperature regulation in both immediate and longterm time frames.